A UV-LIGA Microfabricated Electromagnetic Power Relay

Most micro-sized relays (switches) currently on the market or reported in the literature
are solid-state devices made using semiconductor technology, with silicon the predominant
material. Such devices are not best suited for applications that require large power
capability because they typically have low current capacity, low off-resistance, high
on-resistance, high power consumption, and low dielectric strength. In recent years, the
fast-evolving technology of microelectromechanical systems (MEMS) has opened up new
opportunities for microfabricating microelectromechanical switches. However, most of the
MEMS relays are based on silicon fabrication and can not be used for power applications.

We propose to design, analyze (model and simulate), microfabricate, and test a new type
of micro-relays using electromagnetic actuation. These relays should have the following
characteristics: fast switching speed, high power capacity, high off-resistance
(completely disconnected), lower on-resistance, and low power consumption and heat
generation. Some preliminary study has been conducted and promising results have been
obtained on the proposed research work.

The proposed micro-relays will be fabricated with UV-LIGA (based on UV lithography)
microfabrication technologies. UV-LIGA is based on thick resist (SU-8) and optical
lithography, provides slightly lower quality, much shorter time span for development and
fabrication, and therefore much lower cost. The LIGA processes provide great potential for
building microstructures from a broad selection of materials. Any metals or alloys that
can be electroplated could be used as a potential candidate material for three-dimensional
MEMS structural components. The combination of a broad material selection and the
capability of making high aspect ratio microstructures make the technology best suited for
fabricating microelectromechanical relays that can be used in, but not limited to, the
applications of high power capacity. For example, good spring materials like
beryllium-copper, and good electrically conducting materials including copper and gold can
all be electroplated. With improved switching time, the relays may also be used for series
sampling with low feedthroughs. Compared with the commonly used electrostatic actuation,
the proposed electromagnetic actuation has several advantages: stronger actuation force
and potentially higher power capacity, lower possibility of electrostatic sparks